Stereoselective Tandem Reactions

This project is focused on the study of stereoselective tandem reactions. There are three objectives in this project. The first one is to develop methods to generate (Z)-di- and (Z)-trisubstituted vinylzinc reagents. Tandem reactions will be studied to generate the (Z)-di- and (Z)-trisubstituted vinylzinc reagents with complete control of the double bond geometry. The second objective is to apply these new tandem C-C bond-forming reactions to the synthesis of key natural product subunits. The third objective is to study the tandem asymmetric addition/oxidation of furfurals to provide a variety of highly enantioenriched heterocycles.

With this award, the Organic and Macromolecular Chemistry Program is supporting the research of Professor Patrick J. Walsh of the Department of Chemistry at University of Pennsylvania. Professor Walsh and his students will be studying new methods to synthesize important organic intermediates and developing novel strategies for the synthesis of natural and unnatural products. Novel enantioenriched chiral building blocks will also be prepared in their efforts. Such building blocks will be useful for the synthesis of complex organic molecules of biomedical interest.